1995 La Jolla Summer School: Plasma Physics and Technology; La Jolla, California; August 8-18,1995

9526064 Stefan Support is provided for students and young researchers to attend the "1995 La Jolla summer School on Plasma Physics and Technology" to be held in La Jolla, California in august 1995. ***